Atlantic Interhemispheric Heat Transport Workshop, Palisades, New York, September 11-12, 1995

9526835 McIntyre This award will support a small workshop of investigators studying the role of tropical heat transport on millennial time scales. The goal is to compare various geologic data sets, in order to determine which ones are best at quantifying water temperature and flow rate. ***